California Aquatic Sciences Education Consortium

Acting on behalf of a group of academic, educational and public-service organizations the University of California-Santa Barbara proposes to improve aquatic science education in informal settings that include youth-service organizations such as the Boy Scouts and Girl Scouts, YMCA, YWCA, Boys and Girls Clubs and 4-H. The specific emphasis will be on the close interdependence between humans and the aquatic environment and on the need for enlightened social action in defense of that environment. The thrusts of the project will be to establish the California Aquatic Science Education Consortium; to develop multiple copes of sets of instructional materials on topic of aquatic science appropriate for informal educational settings; and to develop a program for training a cadre of trainers who in turn will train volunteers in the use of the materials. The program has a significant potential for broader national application.